Compressive Rheology of Colloidal Suspension

Abstract CTS-9531959 C.F. Zukoski, U. of Illinois at Urbana The effect of particle interactions on compressible consolidation processes and deformable particle bed/suspension rheology will be investigated. Interparticle normal and lateral (frictional) forces at distances of 1 to 20 nm will be measured with an atomic force microscopy, and the interparticle electrostatic potentials will be evaluated using static light scattering on model colloidal suspensions. The particulate structure during experiments will be determined by sectioning the consolidated beds and determining of planar volume fraction, as well as by using small angle neutron scattering, and optical visualization. A compressible constitutive model will be developed using the understanding of bed/suspension mechanics at microscopic level. The project has relevance to the theory of compressible constitutive relationships of deformable particulate systems, with application to bed/suspension mechanics, filtration, soil liquefaction, ceramics fabrication and various chemical processes. ***